Presidential Young Investigator Award: Microwave Time-of Flight Measurements of Hot Electrons and Holes in Compound Semiconductors

A microwave time-of-flight system is built to measure carrier drift velocities. This system will consist of a scanning electron beam, which scans across a Schottky barrier diode, generating a current. By using a microwave network analyser, the phase of this current can be compared with a reference signal and used to determine the time required by the carriers so generated to cross the diode depletion region. As the depletion length and field are determined separately, the average drift velocity can then be calculated.